CAREER: Photocrosslinkable Polymers for Fracture Fixation

9734236 Anseth Treatment of bone fractures through fixation requires the use of materials with sufficient strength to allow fixation, good tissue/material compatibility, and facile molding (into potentially complex shapes) for easy placement by the surgeon. In addition, controlled degradation is imperative to restore optimum bone function upon healing. The material must initially re-establish the mechanical integrity of the bone and subsequently degrade to allow new bone ingrowth. Hence, degradable polymeric materials provide an important alternative to widely-used metallic implants. Degradable polymers eliminate the need for a second surgery and, if carefully designed, can release compounds to accelerate healing or prevent infections. The research component of this CAREER plan targets the development of a new class of high-strength, surface-eroding, photocurable (i.e., react upon exposure to light) polymers for orthopaedic applications such as fracture fixation. In particular, the rationale for this work is driven by three key hypotheses: i) photopolymerization allows in vivo curing, which will provide great flexibility for the placement and handling of implantable polymers for surgeons; ii) crosslinking of polymers will provide an effective tool to control the physical and mechanical properties of materials without major modifications to the backbone chemistry, which can alter biocompatibility; and iii) surface-eroding polyanhydrides networks, which degrade in a controlled fashion and maintain the structural integrity of the polymer, will be advantageous for orthopaedic applications. The educational component of this CAREER plan is intimately linked with the research plan. Special opportunities for undergraduate research (e.g., senior thesis projects) and incorporation of team-oriented research projects in advanced elective courses will be developed. Outside of education through research, new courses will be developed to examine engineering aspects o f the human body and the use of engineering skills to address medical problems. Finally, the University of Colorado has completed its Integrated Teaching and Learning Laboratory (ITLL). This facility is a national model for future directions in engineering education, and the integrated learning approach (addressing learning styles and cross-departmental teamwork) will be incorporated and piloted in a new polymer courses. ***